The Nature of Interfaces and Quantum Transport in Novel Confined Systems Made Via Molecular Beam Epitaxical Growth on Patterned Substrates - Ft. Monmouth

The PI will undertake high resolution electron microscope and micro- Raman studies of quasi one and zero dimensional structures created via growth on in-situ, focussed ion beam (FIB) patterned substrates in a unique system comprised of UHV interfaced III-V molecular beam epitaxical growth, FIB patterning and processing, metallization, and plasma enhanced chemical vapor deposition for deposition of isolation and encapsulation dielectrics. The high resolution electron microscope and micro-Raman facilities at the U.S. Army Electronics and Device Technology Laboratory, Ft. Monmouth, will be employed to examine the atomistic structural nature and strain effects at interfaces defining the laterally confined quantum well structures grown in this unique system.